Travel Support for Participation in the International Con- ference and Workshop on Building and Sharing of Very Large Scale Knowledge Bases '93, Tokyo, Japan, December 3-4, 1993

Many researchers are focusing attention on the need for much larger knowledge bases as Artificial Intelligence (AI) technologies scale up to realistically large real-world problems. This travel grant support 12 participants to attend the "International Conference on Building and Sharing of Very Large-Scale Knowledge Bases" and an accompanying workshop to be held in conjunction with the conference. The conference is held December 3-4, 1993. The conference and workshop takes place in Japan, at the Keio Plaza in Tokyo.//